Electrical Engineering Design Compendium

The result of this project is a compendium of design problems and tutorials on certain aspects of design for use throughout the electrical engineering curriculum. The compendium is to be purchased by every entering Electrical Engineering student and problems from it are assigned during each undergraduate Electrical Engineering course. The following are some of the characteristics of the compendium: 1. The design problems deal with fundamental component-level design questions such as manufacturability-tolerance trade-offs, an area frequently neglected in design courses that concentrate on system level design. 2. The materials are in the form of small problems that a faculty member can use in class without making a major commitment to design or major changes in a course. 3.Sufficient resource material is included within the compendium to make it self-sufficient. The grantee has commited support that is almost one-half of NSF funds for this project.